Medullary Electrosensory Processing in an Elasmobranch Fish

A major problem for sensory processing is the separation of "signal" from "noise." Self-generated activity stimulates sensory receptors, yet must be distinguished from externally produced sensory stimulation. An excellent model system for testing possible mechanisms is electrosensory processing by certain fish. Several fish species have well-developed electro- receptor systems that are exquisitely sensitive to the tiny electrical potentials produced by other animals. Among elasmo- branchs (sharks, skates, and rays), electroreception is used for prey detection. The medulla of the brainstem is a major site for neural processing of this information. This project will examine how physiological mechanisms eliminate sensory responses to the intense self-stimulation caused by ventilation movements of the gill chambers. Preliminary data suggest this mechanism relies on the primciple of "common-mode rejection," as central circuits compare inputs from different parts of the body and by subtraction eliminate the signals that all receive simultaneously. Similar processing by the same circuits may enhance sensitivity to differential signals of natural electric fields. These experiments will determine the cellular mechanisms involved, examining the anatomy and physiology of the circuits involving the brainstem and parts of the cerebellum. This approach is a novel one with an excellent model system, and results will be important for understanding the fundamental sensory problem of signal and noise separation, and for understanding the evolution of electrosense and sensory processing in this vertebrate class with such an ancient history.